Doctoral Disertation in Studies in Science, Technology, and Society

Doctoral Student, Lynne Snyder; Topic: "The Federal Government Discovers Air Pollution, 1948-63." The signing into law this year of a new Clean Air Act ends nearly a decade of Congressional and Administration debate over new steps to be taken to limit air pollution in the US. Ms. Snyder, in her doctoral research under the direction of Professor Rosemary Stevens, is examining the origins of national government involvement in the effort to control air-borne pollutants. This project comprises the review of papers in Cincinnati, Ohio and University Park, Pennsylvania, of records of the State of Pennsylvania in Harrisburg, and the recording of oral histories with retired steelworkers and their spouses in Fort Myers, Florida. This research promises to contribute to a social historical dissertation on the emergence of a federal approach to air pollution after World War II, a policy crafted by research physicians and industrial hygienists informally, by means of expertise. Ms. Snyder's dissertation focuses on responses to a premier environmental disaster of the pre-regulatory era, the deadly smog over the southwestern Pennsylvania steel towns of Donora and Webster in 1948. Oral histories with surviving community members and leaders supply critical perspectives on local attitudes towards and experiences with outside investigators. Review of the papers of Cincinnati's Dr. Robert Kehoe, who led the steel industry's investigation of the smog, provide an unprecedented view of the evolution of privately- sponsored environmental health expertise. Review of United Steelworkers Secretary David J. McDonald's papers, and those of the Pennsylvania State Departments of Health and Labor and Industry, contribute key information about the tensions between industrial union, state, and federal government and administrative responsibilities for public health were renegotiated in the postwar era.